Activities Related to a Linear Collider Project

For the further exploration of the newly discovered Higgs boson and for gaining more precise understanding of new physics, an electron positron collider operating in the 300 to 1000 GeV energy range would be a powerful research facility. Two candidate e+e- collider technologies exist, the International Linear Collider (ILC) based upon superconducting accelerating structures, and the Compact Linear Collider (CLIC) using structures powered by an intense drive beam of electrons. This award supports the continued participation and leadership of Prof Paul Grannis of SUNY at Stony Brook in the international electron positron collider effort as a member of the Linear Collider Steering Group of the Americas (LCSGA). The broader impacts of the effort are strategic, giving the US a significant role in an important area of global science.